Analysis and Synthesis of Scattered Data on Surfaces via Radial and Related Basis Functions

Ward
DMS-0807033

The main object of this project is to develop new methods
and tools for the analysis and synthesis of scattered data by
means of radial and related basis functions. Very recently, the
investigators Ward and Narcowich and a collaborator introduced a
new tool for fitting a divergence-free vector field tangent to a
2D orientable surface contained in 3D to samples of such a field
taken at scattered sites on the surface. The method, which
involves a kernel constructed from radial basis functions (RBFs),
has applications to problems in geophysics -- for instance, the
nonlinear flow of an incompressible fluid in a single hydrostatic
atmospheric layer. Mathematically, incompressibility translates
to the velocity having vanishing surface divergence. Fitting
divergence-free tangent vector fields to data taken in these
cases would help in modeling the incompressible velocity fields
involved. In addition to handling scattered data, it has the
advantage of avoiding special treatment for the poles. The
investigators study the approximation properties of this tool,
with a view towards estimates on its data-fitting errors as well
how robust it is. For certain cases, numerical experiments
suggest both a good fit of data and robustness. In addition,
unstructured scattered data -- i.e., clumped, or clustered, or
nonuniformly distributed data -- present problems for any method,
including the traditional RBF-type algorithms based on translates
of one conditionally positive definite function. These clustered
data occur naturally in learning theory, neural nets, meshless
methods, and other situations. To deal with clustered data, the
investigators initiate the study of the construction of new
bases, preconditioners, and in general a new RBF-type paradigm.

Problems that involve analyzing data taken from scattered
sites -- that is, irregularly placed sites -- in space or on the
surface of the earth arise frequently in diverse fields:
computer-aided design graphics, data mining, medical imaging,
learning networks, and geoscience, in addition to many other
areas. Such problems present difficulties for traditional
methods, which are based on collecting data at uniformly placed
sites. For example, weather prediction is based on a
mathematical model where the earth's surface is assumed to be a
surface of a sphere. The investigators develop new methods and
tools to help in analyzing such phenomena via so-called radial
basis function methods.